In-Situ Diffraction Studies of the Structural Evolution in Doped Conjugated Polymers

Experimental investigations of the structural properties of doped conjugated polymers. X-ray diffraction will be combined with in situ vapor and electrochemical techniques, in order to follow the doping-induced transitions as they occur. The novel phases and novel phase transformations which occur in these systems will be investigated. Correlations between the structural evolution and the electronic behavior will be sought.